Spatial Clustering of Women's Employment: Causes and Implications

In-depth interviews conducted with both employers and employees in four census tracts with high female employment in Worcester, Massachusetts will elucidate the processes by which employment opportunities for females become spatially concentrated and segregated from male employment within metropolitan regions. A control group of males and their employers will also be interviewed to identify the importance of confounding variables such as income and education. This research will integrate the perceptions and actions of employers and employees with aggregate contextual information regarding the existence of gender segregation by industry, occupation, and location. Professors Hanson and Pratt have in previous work documented distinct clusters of female-dominated industries and occupations within metropolitan areas. This project will build upon and extend their earlier research by identifying the forces that generate the gender segregation of employment in space and by developing an integrated theoretical explanation of why gender segregation by industry, occupation, and location occurs. It will also highlight the role of location in particular by exploring the degree to which residence in particular places constrains the choices women have among different kinds of jobs and careers. Professor Hanson and Pratt's research will advance our understanding of metropolitan labor markets and the locations of employment opportunities within metropolitan areas. In addition to such basic theoretical advances, their work will yield results that will be useful for policy makers and planners concerned with maximizing labor force effectiveness and productivity.